A Program of Coursework and Long-term Professional Support for Multiple Discipline Secondary Science and Mathematics Teachers

Benedictine College will conduct a four week workshop for 140 teachers in Iowa, Kansas, Missouri, and Nebraska. The workshop will emphasize instruction in: physics, chemistry, biology, and mathematics. Each teacher will participate in one of the four major areas of program. The instruction will focus on content and the development of materials that are to be implemented in the classroom. All teachers will participate in a series of interdisciplinary workshops. An optional computer workshop will be provided for teachers who want to learn or practice basic computer concepts. The staff is composed of master secondary teachers and college faculty. The participants will conduct inservice activities during the academic year for other teachers in their school system. Over a two year period the college staff will make site visits to each participant's school. Teachers will be encouraged to attend professional meetings and make presentations at these meetings. Some finiancial support will be provided for teachers who attend these meetings. The school districts, from whom participants are chosen, are being encouraged to provide support for inservice activites and to purchase additional equipment and materials that will enhance their mathematics and science programs. The professional organizations in the states will cooperate in coordinating and providing support for this project. The concerns of many small and rural schools will be addressed.